Methods for Evaluating Ecological Engineering

The objective of this project is to explore the applicability of ecological principles to the process by which alternative concepts are evaluated for selection of solutions to environmental engineering problems. Concepts derived from energy analysis offer a potential for complementing traditional economic indices in determining relative costs for alternative designs and in considering the economic values of intact environmental systems. Results of this project are expected to be applicable to a wide variety of problems that are addressed in environmental engineering practice including water supply and treatment, wastewater collection and treatment, solid waste management, and air pollution.